Local Acoustic Diagnostics of the Solar Interior

This project uses local wave diagnostic techniques to study surface manifestations of subsurface magnetic interactions with acoustic waves. The PI used the NSO South Pole observations of Pomerantz, Harvey, Duvall and Jefferies to develop diagnostic techniques to detect interactions of acoustic waves with subsurface magnetic structure. These techniques are giving the PI the first detailed look at subphotospheric magnetic structure, showing submerged flux tubes that cross the solar equator to connect the active region bands. These techniques offer a broad range of synoptic applications and may revolutionize our understanding of solar interior MHD and the solar dynamo. The techniques will be used to develop an obersvational basis for exploring the solar interior by means of acoustic holography. The results offer a unique opportunity to open the solar interior to the field of local helioseismology.